Research Initiation Award: A Knowledge Engineering System for Inquiry-Feedback Project Management

This project will investigate the importance and utility of creating an interactive environment for knowledge acquisition to improve project controls and analysis processes, to minimize delays in achieving scheduled completion dates.